Microwave Plasma Processing for VLSI Technology

This research focuses on the application of microwave discharges to plasma processing of integrated circuits. The experiments make use of a new microwave discharge reactor called a microwave plasma disk reactor. The reactor, which can be operated from above 10 Torr to less than 10;i-;i3 Torr in any gas, consists of a disk-shaped microwave discharge inside a tuneable cylindrical microwave cavity and is adaptable to many different experimental conditions. The research consists of three major tasks: plasma reactor characterization; microwave plasma oxidation experiments; and microwave plasma etching experiments. Although the experimental systems employed for each of these are to be similar, the investigation makes use of three separate experimental setups: one setup to characterize the microwave plasma, a separate experimental system to investigate oxidation, and an entirely new setup to investigate microwave plasma etching.